Biodiversity and Ecosystem Informatics - BDEI - Spatial Data Infrastructure for Ecological Research (Planning Grant)

EIA-0131952
Cushing, Judith
Evergreen State College

BDEI: Spatial Data Infrastructure for Ecological Research (Planning Grant)

Summary

The Biodiversity and Ecosystem Informatics Research Agenda (http://bio.gsfc.nasa.gov) notes
the current inability to compare data across spatial scales as a critical problem: "Biological data
from different sources are frequently collected and presented in different scales and resolutions
resulting in a loss of detail when multiple data sets are required for data synthesis and analysis".

This grant brings together a team of ecologists and computer scientists to plan a proposal for a
"Spatial Data Infrastructure for Ecological Sciences." The proposed infrastructure would allow a
scientist to define a data set by putting together the proper "spatial." building blocks -- building
blocks represented in conceptually familiar, domain-specific terms. Data sets thus constructed
(or recast) would be amenable to the automatic integration of spatial locations and measurements
with automatic spatial data transformations.

This would allow spatial analysis of individual field data sets and the linking together at same
and different spatial scales data sets defined within the spatial infrastructure. We aim to include
productivity enhancing research tools such as field data gathering devices and data validation
and analysis, and to automatically tag field data with metadata early in the research cycle. We
thus also contribute to the synthesis of metadata and data.